MOREnet Expansion Phase 8

9420654 Mitchell This award adds three higher education institutions to the MOREnet state network: Moberly Area Community College Three Rivers Community College University of Health Sciences Faculty and students at the institutions benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other campuses in pursuit of research and educational projects. The award provides partial support of the project for two years.